Creating a Teen Science Cafe Movement

In the 1990s, Science Cafes emerged that brought together people from all walks of life with scientists in conversation over science, technology, engineering, and mathematics (STEM) topics. The cafes were popular as conversations were informal in casual settings and engendered deep discussions. In 2007, Science Education Solutions received a grant from NSF and began an experiment to see if the adult science café model could be adapted to appeal to high school teens. The program, Café Scientifique New Mexico, became very popular with teens in towns across northern New Mexico. The blend of conversing with scientists about interesting science topics in an out-of-school social setting and digging deeper with hands on activities proved successful. The teen model was refined through trial and error and formal evaluation over several years. Today it continues to provide teens with a new perspective on the nature of science and a picture of scientists as real people leading interesting lives. The Teen Science Café Network (TSCN) was formed in 2012 with NSF funding to allow other individuals and organizations to start their own versions of the Teen Science Café, adapted to their local institutions and demographics. Five founding member organizations around the United States formed the initial Network and each began creating their own Teen Science Café programs. Today the TSCN is a dynamic, growing community of practice spread across the country with the mission of connecting high school teenagers with STEM and STEM experts via the science café model. The network currently has approximately 133 member organizations in 46 states and Canada. This project will move the network to a much larger scale by creating organization and professional support structures to create a strategically growing social movement with distributed leadership, organizational infrastructure, and robust professional development for long-term stability with a goal to increase the number of member organizations to 500 over five years. Building on the literature on professional development for informal science educators and the literature on network capacity building, network sustainability, and scale, the project will also conduct research that will inform the field about successful model diffusion. This project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understanding of deeper learning by participants.

This Innovations in Development project has five objectives. The first is to re-structure the Teen Science Café Network (TSCN) to a more distributed leadership model that will move the network to long-term sustainability. The PI team will identify five experienced individuals already leading strong café programs to become Guides for new sites. These Guides will provide training, support, and mentorship to new network members. Each Guide will have responsibility over a given year for mentoring two cohorts of nine sites, allowing the network to increase in size over the next five years. The second objective is to implement an interactive program of professional development for new network members. The training will involve approximately 15 hours of adult leader training focused on building skills around teen engagement and café management. The third objective will be to strategically engage all members in the network community of practice through opportunities to participate in and lead ongoing learning with their peers. Through webinars, Birds of a Feather groups and annual workshops and a Science Events Summit, café leaders will actively hone professional skills and broaden their personal network. Objective four is to broaden the involvement of organizations and communities not currently in the network through strategic recruitment of STEM professional societies, military youth programs, library networks, and youth-serving organizations, among other organizations. Finally, objective five is to implement a research agenda to contribute to the informal learning knowledge base. The research will focus on how the project’s approach to network growth and distributed leadership leads to effective scaling and sustainability.